CAIG: Prediction of Groundwater Uranium Contamination using Physics-Informed and Casual AI Methods

Hard-rock mining has occurred across the Navajo Nation for more than 100 years, leaving more than 500 abandoned mines that have contaminated groundwater with uranium. This contamination can pose risks to the health of families who rely on the affected groundwater and represent a broader public health concern. This project integrates artificial intelligence, hydrogeology, environmental engineering, and geochemistry to enhance uranium migration prediction and assist groundwater management in the Navajo Nation. The project will also strengthen research capacity at a Tribal University by providing Artificial Intelligence (AI) and Geoscience education, undergraduate research experiences, field investigations, and mentoring that prepare students for STEM careers in artificial intelligence, geoscience, and environmental stewardship.

The project integrates Physics-Informed Neural Networks (PINNs) with Structural Causal Models (SCMs) to combine governing groundwater physics with causal inference, enabling models that are physically consistent, interpretable, and scientifically explainable. PINNs enforce groundwater flow and Advection-Dispersion-Reaction Equations through partial differential equation residuals, boundary conditions, and initial conditions, while SCMs identify the causal interactions among fracture connectivity, groundwater flow, and geochemical reactions and support counterfactual analyses of remediation scenarios. Neural operators, generative models, transfer learning, and uncertainty quantification improve computational efficiency, data-efficient inversion, and prediction under limited monitoring data. Model performance will be benchmarked against established MODFLOW-based groundwater simulators and validated using field observations collected through the Navajo Technical University-Florida Atlantic University partnership, producing next-generation AI methods and scientifically credible decision-support tools for groundwater management in complex subsurface environments.